New Technologies for the Blind: Improving Accessibility to Science

At present, blind people have limited access to scientific literature and few means beyond "working it out in one's head" to do math. New raised-print technology permits printing scientific equations, figures, and diagrams that can be read tactilely. Development and testing of an equation-printing method that retains the intuitive and conceptual advantages of the standard spatial representation of math equation is under development. Research to date has worked with equations comprised of braille numbers and letters and with tactile representations of the math symbols that replace the often ambiguous braille math symbols. Math equations are now presented in a spatial format as they are for sighted people, unlike that used with braille. Fractions are printed as numerator over denominator. Subscripts and superscripts are printed in the proper sub- or superscripted positions. Limits of sums and integrals are printed in their normal positions. The symbols are represented by compact tactile patterns that can be read more easily than the Braille math symbols. The process is referred to as the "Dots+" method. Research is being done to determine whether representation of common math symbols can be done with an enhanced 6-symbol cell with three distinguishable symbols, or if it will be necessary to use an 8-symbol cell with two symbols. Work is also being done to use the enhanced Braille cell to represent alphabetic charters, greek, italic, bold, script, etc. Non-overprinted attributes (for example, vector signs, dots, carets, tildes, and other such things over a character) are being printed normally with some enhancement for readability. The printing technology needed for producing such dot+ equations exists, but an actual machine does not. The project has been promised a beta-test version of a desk-top plotter capable of making any of the required shapes. During the project, the Director is working with two undergraduate computer science students, one of whom is blind. In addition, he is researching international activities in aspects of blind technology. The research being done should result in the ability to write equations for blind people that retain all the intuitive and conceptual advantages of visual equations.